Travel to Atend: XVIII Biennial Fluid Dynamic Symposium Polish Academy of Sciences Mragowo, Poland Sept 6-11, 1987

This award will provide travel funds for Dr. Albin A. Szewczyk to present an invited general lecture at the XVIII the Biennial Fluid Dynamics Symposium, Warsaw, Poland. September 6-11, 1987. This Biennial Symposium is a meeting of scientists working in different branches of fluid mechanics interested in presenting and discussing current work on fundamental problems. The proceedings will be published by the Polish Academy of Sciences.